CRII: SaTC: Design, Implementation, and Analysis of Quantum-Resistant Algorithms on Smart Handheld Embedded Devices

The prospect of quantum computers is a threat against the security of currently used public key cryptographic algorithms. It has been widely accepted that, both public key cryptosystems including RSA and ECC will be broken by quantum computers employing certain algorithms. Although large-scale quantum computers do not yet exist, but the goal is to develop quantum-resistant cryptosystems in anticipation of quantum computers as most of the public key cryptography that is used on the Internet today is based on algorithms that are vulnerable to quantum attacks.

This project will explore isogenies on elliptic curves as a foundation for quantum-resistant cryptography. Isogeny computation is known to be difficult. This project will analyze newer and faster families of isogenies, which yield a faster solution to the problem of finding isogenies. It will exploit state-of-the-art techniques and employ new optimizations to speed up the computation in isogeny-based cryptography, including tower field and curve arithmetic. The performance of field arithmetic computation is strongly influenced by the processor micro-architecture features, the size of the operands, the algorithms, and programming techniques associated to them. This research will provide preliminary results on developing fast algorithms and architectures for post-quantum cryptographic computations suitable for emerging embedded systems.

For further information see the project website at: http://people.rit.edu/~rxaeec/Research.html